Three-Dimensional Reconstruction and Rates of Actual Fold Growth and Fold Propagations in Near-Surface Conditions

9706269 Burbank Folds are fundamental structures of contractional orogens, but because timing and increments of folding are parameters that commonly are not possible to determine unambiguously, the kinematic history of fold development in a orogen is difficult to establish. This information is needed to make reliable reconstructions of how orogens develop. This project will attack this problem by using a set of folds in NE Spain where deposition caused strata to be deposited during fold amplification, such that each growth strata recorded different amounts of folding. By step-wise unfolding keyed to the growth strata, and obtaining age control by various means. The sequential development of these folds can be constructed, successful results should help understand the role of folds in developing orogens.